Young Scholars in Computing

9553522 Abernethy This proposal seeks support for a four week, residential Young Scholars program in computer science for thirty students entering grades 11 and 12. The program is designed to introduce students to computing as a scientific discipline by immersing them in computer science-oriented research projects from four primary areas: image processing, neural networks, scientific data visualization, and research issues associated with the Internet. A primary goal of the project is to assist students in expanding their perspective of the computing sciences from a conventional programming paradigm toward a broader theoretical and research-based approach to computing. The program will also include follow-up activities consisting of continuation of work on research projects initiated during the school year, making a presentation on their summer experience to students at their home school, and a one day Fall workshop on the Furman campus.